Longitudinal Study of Social Development

In nature, young rhesus monkey females are integrated for life into their natal group, whereas males transfer during puberty. The social position that young females attain in their group depends very much on that of their mother. When adult, a female's place in the rank-order is usually at about the same level as that of her mother and sisters. There are strong indications that this inheritance of status is mainly a social (as opposed to genetic) process, brought about by the young female's association with her kin. Not only a young female's future rank, but also her future friends in the group are to some extent predictable; she will form bonds with other females of her age and status level, both kin and nonkin. Whereas these outcomes of social development are now fairly well known, the details of the process are not. There are many ways in which mothers, actively or passively, may guide their daughters' development, for example, by supporting them against particular opponents, by bringing them into contact with the offspring of their kin and friends, or by preventing the development of certain other contacts. The purpose of this research project is to continue an investigation of the way rhesus mothers shape the social environment of their daughters. Data will be collected on a wide range of behaviors of young monkeys and their mothers in two large groups. For the first time, social development will be followed over the entire developmental period, from birth to adulthood, in order to investigate the extent to which social interactions at early stages of development predict relationships formed at later stages. Because this project considers socially positive behaviors (e.g., bonding, social tolerance) along with socially disruptive behaviors (e.g., aggression, rank acquisition), the study may be able to integrate these behaviors into a single theoretical model of social relationships.